Oceanographic Instrumentation

9900256
Amos
This award to University of Texas at Austin will provide instrumentation for oceanographic research for use on R/V Longhorn, a research vessel operated by the university's Marine Science Institute as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a pure water system, a block meter wheel and two computers for shipboard use. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Gulf of Mexico, during 1999 and future years.
***